Mathematical Interactive Network Design (MIND) a Computer Labortory for Developmental Mathematics

Kathryn C. Wetzel DUE 9551581 Amarillo College FY1995 $ 32,602 Amarillo, TX 791780001 ILI - Instrumentation Project: Mathematics Title: Mathematical Interactive Network Design (MIND) A Computer Labortory for Developmental Mathematics The Mathematical Interactive Network Design (MIND) project is a computer laboratory designed for intensely interactive, but easily constructed, multi-media instruction in developmental mathematics. The laboratory will consist of 20 Hewlett Packard 486 computer work stations networked via Novell software through an existing local file server. Using Visual Basic multimedia software and object oriented programs developed by supervising instructors, a central user interface allows access to, and control of, the various instructional media. Functions and rules, designed to be independent of subject mater, are implemented using a decision table processor. A combination of interactive digitized video and audio is integrated with graphics and text presentations. The students are provided with lecture, drill, problem solving, open ended questions, review, and testing as deemed beneficial or necessary. The computer guides each student through an individualized tutorial session. The route taken by the student is based upon that particular student's activities. Therefore, each student participates in a unique tutorial session geared to his specific requirements and cognitive style. Students who have already utilized two of the currently available MIND mathematics sessions responded positively to correction of their errors in judgment and reasoning. The ability of MIND to provide constructive, instructive feedback creates a mentoring atmosphere dramatically different from other developmental mathematics tutorial softw are.